Presidential Young Investigator Award: Mechanics of Processing and Failure of Composite Material

This research focuses on the mechanical behavior of composite materials during fabrication and during failure. The myriad choices available to the designer of composites, combines with the diversity of phenomena which may occur at the various stages of processing and service make modeling of critical importance. Analytical and numerical techniques will be developed and used, supported by carefully designed model experiments where appropriate, to provide guidelines for the material designer. Two topics initially to be explored are crack growth at ductile/brittle interfaces and the effect of damage of sintering of ceramic composites. The former will involve the development of a steady-state algorithm of rather general utility, the latter the incorporation of a constitutive description of a damaged powder matrix into a detailed model of composite sintering. Each is an example of a micromechanical process with significant macroscopic consequences for the reliability of composite materials.